Exploiting Natural Structure of Functions in Optimization

Mifflin
0707205

This project is concerned with solution of difficult
optimization problems. Solving such problems efficiently
involves exploiting at least one of two types of naturally
occurring structure, one implicit and the other explicit. These
structures are related by the result that problems with
explicitly known separable structure can be transformed via
decomposition techniques (involving independent subproblem
optimization) to equivalent nonsmooth problems with implicit
VU-shape structure. For many objectives with the latter
structure the investigator and his colleague undertale
significant further development of a bundle-based method that
employs a V-model of the objective and a U-model of an associated
Lagrangian. This rapidly convergent algorithm takes advantage of
past research that defined a structure that is special enough to
give "primal-dual tracks" to minimizers and general enough to
include many applications. The new work involves numerical
testing on practical problems where the cutting-plane nature of
subgradient bundling along with U-Hessian estimation allows our
algorithm to follow a primal-dual track without having to know it
explicitly. A significant component of the work is to extend the
method to run on nonconvex functions and have provable
convergence to stationary points.

The computational methods developed here are significant
because they can be applied in many practical situations
including some having broad societal impact. A new application
involves a complicated objective that is used in many
applications such as economic and geophysical modeling,
computer-aided design, and image analysis. Nonsmooth
optimization developments also make feasible the application of
decomposition techniques to large or complicated models such as
those occurring in operations management, telecommunication and
traffic assignment, manufacturing, civil infrastructure design,
structural engineering, finance, and strategic planning. Such
models illustrate the need to make trade-off decisions when
considering conflicting criteria such as simultaneously having
high reliability and low cost. Such an area of application is in
power system planning subject to environmental protection
constraints. These problems naturally decompose into higher
level problems of deciding which types of power generation plants
to build and lower level ones of deciding how to best operate the
various units to meet daily energy demand. Additionally, this
project fits in well with ongoing efforts in high-performance
computing, because future decomposition applications will utilize
parallel processing or networks of computers to solve very large
or complex decision-making problems.